NSF/ONR: Interfaces between High Temperature Superconductors and Various Isotropic Metallic Oxides in Epitaxial Superconductor-Normal Superconductor Heterostructures

9421947 Eom The specific research tasks for the NSF include: (1) investigation of various isotropic metallic oxides, both non copper-oxide-based isotropic metallic oxides and a new family of copper-oxide-based isotropic metallic oxides (these metallic oxides can be applied in many other devices, and electrodes in electro-optic devices), (2) the fabrication of superconductor-normal metal-superconductor epitaxial heterostructures with various isotropic metallic oxides and characterization of their interfaces, (3) investigation of the origin of interface resistance between normal metal barriers and superconductors. Junction properties such as critical current and junction resistance will be measured for both planar and sandwich type junctions. Normal metal barriers of various metallic oxides with a wide range of structural, electrical, chemical and magnetic properties will be used to control the interface properties between high Tc superconductors and the normal metal barriers. ***